REU Site: Research Experiences for Undergraduates in Ecology and Evolutionary Biology

The Department of Ecology and Evolutionary Biology at University of Kansas
has developed a summer program to help undergraduate students understand
how scientific research is conducted. To achieve this goal, 30 students
(10 in each of the years 2001-2003) will be recruited to spend 10 weeks at
the University of Kansas campus in Lawrence, Kansas. Students in the
program will learn about research in two main ways. First, each student
will be paired with a faculty mentor and will complete their own research
project. Participating faculty have varied interests (ecological study at
many spatial scales; research on evolutionary patterns and processes at
several time scales), so a diversity of research projects will be done.
Second, students will participate in many group activities including weekly
seminars and tours of research facilities. Students will also get
additional research exposure by presenting their results at a research
symposium and attending a national scientific meeting in their discipline.
An objective of this program is to provide research experiences for
students who are unlikely to have this opportunity at their home
institution and therefore help encourage a diverse population of students
to consider scientific careers. Thus, although recruitment will be
nationwide, a particular focus will be to attract students from smaller
institutions with fewer research faculty, and students from institutions
with high minority enrollment. In particular, students from Haskell Indian
Nations University, Lawrence, KS will be encouraged to become involved.